MRI: Acquisition of a Laser Microdissection Instrument

An award has been made to Mississippi State University under the direction of Dr. Nikolay M. Filipov for the acquisition of a laser microdissection system for the manipulation and study of various aspects of cell biology. The instrument will benefit a large number of research programs in botany, forestry, immunology, Parasitology, proteomics, and others fields. The instrument provides state-of-the-art capabilities to capture a small number of cells from culture and isolate their internal structures for research on neural development, diseases of fish, plant viruses, and proteomics of chickens. Cells and their structures can be tagged with fluorescent dyes for further study. The microdissection system will be used in several existing courses and summer programs for MSU students. High school students as well as students from a nearby women's college will be involved in the educational programs.